Mathematical Sciences: T+H*H Operators in Linear-Quadratic and H-Infinity Problems

This project focuses on some issues arising in the mathematical theory of control problems for linear systems. The central theme of this project is an operator of the form T + H*H where T is Toeplitz and H is Hankel. The motivation is two-fold. First, as previously shown by the principal investigator, the linear quadratic optimal control problem has a T + H*H operator that reveals a lot of structure not identifiable by conventional means. Secondly, as shown by the investigator, the H - infinity design problem alsdo involves a T + H*H operator, the largest eigenvalue of which provides the so called achievable feedback performance, a critical parameter. As such, this operator reveals a strange connection between the linear quadratic problem and H - infinity problems. This connection will be investigated along with its spectral and computational aspects. This research is part of a larger effort conducted in this country by theoretical engineers and mathematicians to develop a unified design methodology for linear control systems with robustness requirements on the design. This research combines fileds such as systems engineering and operator theory in mathematics.